Industry and Government Co-Sponsored Workshop on Pre-Competitive Research in Basic Science of Commercial Light Sources to be held in Washington, DC on 2/27/95-3/2/95

9506997 Gough This proposal is for holding a workshop to address the development of a sustained advanced light source research program aimed at building the scientific basis for major long range breakthroughs in light source performance and efficiency. Qualified researchers in the basic sciences related to light sources technologies will be brought together with world-wide experts now working in light source research to discuss, plan and prioritize the sustained research programs needed to achieve the major breakthroughs. The goals are to: (1) educate participants from the basic research community in the current state of the art in light source technology and research; (2) provides a vehicle for the participants to explore both single focused as well as interdisciplinary research programs that would provide the basis for the breakthroughs; (3) jointly establish specific programs and priorities for collaborative effort and funding. There will be approximately 60 participants. The workshop will take place over a two and one-half day period. The findings and recommendations regarding new research directions will be documented in a workshop proceedings. The outcome of the workshop is expected to lead to multiple sourcing of funds for the targeted research from both private industry as well as from interested government agencies. ***